BARYONS 92: International Conference on the Structure of Baryons and Related Mesons; New Haven, Connecticut; June 1-4, 1992

A conference entitled 'Baryons 92; International Conference on the Structure of Baryons and Related Mesons' will be held at Yale University on June 1-4, 1992. This conference will provide a forum for new developments in both theory and experiment related to research planned at CEBAF, RHIC, and other high energy nuclear physics facilities. NSF support will allow students and young researchers in the field to attend this important meeting.